Explore the Universe

PI: David DeVorkin
Inst: Smithsonian Institution
AST-0083463

The Smithsonian National Air and Space Museum (NASM) will develop and install a major new permanent exhibit, Explore the Universe, which shows how understanding of the Universe has changed over time as the tools we use to study it have evolved. The exhibition makes use of a selection of artifacts, working models, images, interactive videos and computer programs, hands-on exhibits, and live demonstrations to explore scientists' view of the Universe as well as how they use ground- and space-based technology to study it. The exhibit will cover all regions of the electromagnetic spectrum, and offer a blend of historic perspective and modern experience with the science of astrophysics and cosmology. The goal is to communicate both the magnificence of the Universe and the efforts of scientists to understand it. An accompanying web site will be developed that contains the images, text, and computer interactives of the exhibit, and a virtual tour of the gallery. Educational materials will be prepared for teachers, students, and families visiting the exhibit, and a supplemental educational program of visitors, workshops for teachers, and internship programs will be created.

Funding for this project is provided by the Division of Astronomical Sciences, the Division of Physics, and the Office of Multidisciplinary Activities in the Directorate for Mathematical and Physical Sciences.
***